GOALI: Global instability as a route to efficient mixing of scalars in variable viscosity free shear flows

Liquid mixing is important in many industrial applications, such as adding pigments into paints, dispersing active ingredients into pharmaceuticals, and combining constituents in processing foods. Mixing is also important in preparing glycol-water mixtures for cooling data centers and in blending polymers for additive manufacturing. Mixing plays an important role in bioengineering unit operations such as single-cell encapsulation. Mixing consumes significant amounts of energy. Chemical mixing alone accounts for nearly 1.5% of total U.S. energy consumption. Energy consumption is especially significant in mixing applications involving very viscous liquids. In those cases, generating the small vortical structures necessary for effective mixing poses challenges. This GOALI award will support a collaboration between the University of Minnesota and Dow to improve mixing in viscous liquids. The research team will use a combination of fluid dynamics theory and experiments to identify conditions that can trigger effective mixing in low-speed flows of viscous liquids. Results will help guide process designers improve mixing and reduce energy costs. The project will also develop teaching modules on fluid dynamics that will be incorporated into the Ambassadors program at the university. Mechanical engineering students will develop and conduct camps for elementary-grade students. Outcomes from the project will support industrial mixing technology in advanced manufacturing.

The research team hypothesizes that turbulent mixing of scalars can occur at low Reynolds numbers by establishing globally unstable flows. A canonical round jet emerging into a medium of different viscosity will be studied to prove the hypothesis by measuring the velocity and scalar fields. Three globally unstable configurations will be experimentally examined using Particle Image Velocimetry and Laser Induced Fluorescence. First, the team will investigate the flow physics of a constant-property jet with annular counterflow. Then, the team will investigate the flow physics of a low-viscosity jet followed by a low-viscosity jet with co-flow/counterflow. The measurements will be analyzed to identify the dominant unstable modes as a function of viscosity ratio and counterflow. From these measurements, the characteristics of scalar mixing in globally unstable flows will be contrasted with their globally stable counterparts to assess the relative roles of velocity profile and viscosity variation. The experiments will be complemented by numerical calculations to further identify the likely operating conditions where global modes are established. This GOALI proposal will leverage crucial insights from industry practitioners to provide fundamental understanding and new approaches towards realizing substantial energy savings in fluid mixing.